Subdivision-based Algorithms for Surface Modeling

Subdivision was initially conceived as an extension of splines to control meshes of
arbitrary topology. Subdivision algorithms, while being more flexible and general,
retain a number of useful properties of splines. Most importantly, the surfaces generated
by these algorithms have a natural hierarchical structure and are computed
using simple local rules. This allows the design of efficient hierarchical, local, and
adaptive algorithms for rendering, manipulation, collision detection and intersection
of such surfaces. Subdivision surfaces are rapidly gaining wide acceptance in
the industry. In recent years, substantial progress has been made in understanding
the properties of the subdivision surfaces, especially smoothness properties. However,
subdivision still lacks the body of well understood and reliable algorithms
available for splines and a few practically important aspects of subdivision, such
as subdivision rules for boundaries and singular features, do not have a rigorous
theoretical foundation. Aside from smoothness, no other property of subdivision
surfaces has been studied in detail. At the same time, some fundamental limitations
of the commonly used stationary subdivision schemes became apparent. For example,
practical curvature-continuous subdivision surfaces necessarily have a "flat."
spot near extraordinary vertices, and the surfaces acquire ripples near vertices of
high valence. The proposed research has three main objectives:

Advance the theory of stationary subdivision to include all important practical
cases, and develop the theory necessary to understand fairness, mesh
quality, and approximation properties of subdivision.

Develop robust algorithms for common geometric operations such as com-putting
collisions and intersections of subdivision surfaces;

Explore nonstationary subdivision schemes which retain locality, and identify
ways to improve the quality of the resulting surfaces without sacrificing
the performance.

The three components are unified by a common goal: the development of a
surface representation supporting highly efficient, local, hierarchical and adaptive
algorithms for geometric modeling.